Eukaryotic DNA Replication Meeting in Cold Spring Harbor, NY, on September 8-12, 1993.

The "Eukaryotic DNA Replication" meeting will be held at the Cold Spring Harbor Laboratory from September 8-12, 1993. This is an annual meeting devoted to fundamental research topics related to chromosome duplication, structure and function, and will include areas of biological research in cell growth, cell cycle control, DNA amplification, virology, and developmental biology. %%%% This meeting brings together senior and starting investigators who are working in a focused area of research in an environment conducive to discussion and interactions.